Sensors: Immobilization Technology for Array-based Biosensors

ABSTRACT

Surface plasmon resonance biosensors have revolutionized the study of
molecular interactions. Current instruments can provide detailed kinetic
information about complex formation without reagent labeling, but are
low throughput. New array-based biosensor technology is poised to
make a significant contribution to the proteomics revolution by increasing
the number of surface reactions that can be monitored simultaneously. The
challenges in producing protein arrays are two fold: depositing and maintaining
active proteins on a surface and physically creating dense arrays of proteins
within small target areas (typically 1 cm2). The current award seeks to
optimize the conditions for solid-pin spotting of peptides and to fabricate novel
fluidic devices that would allow for in-flow protein immobilization.

The broader impacts of this work include training students in biosensor technology
and nuclear receptor biology. In addition, the technology that results from this work
will permit large-scale mapping of protein interactions, which will serve as the
basis for interpreting complex biological systems.